REU SITE: Summer Research Projects in Contemporary Physics for Women and Minorities

9506751 Winston This "Research Experiences for Undergraduates Site" in the Physics Department of the University of Chicago will continue to focus on recruiting under-represented groups. The participating students are offered an exceptional program of research participation and other professional activities. ***